A Workshop to Promote Power Electronics Education, August 21-24, 1991, University of Minnesota, Minneapolis, MN

This is a proposal for a workshop on power electronics education. The purpose of the workshop is to introduce new approaches to teaching the subject to university professors. An emphasis of this workshop will be the hands-on demonstration of simulation software that can be used for teaching purposes.